PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to James E. Freitag is "Applications of model theory to geometry and algebra." The host institution for the fellowship is University of California, Berkeley, and the sponsoring scientist is Dr. Thomas Scanlon.